Faculty Award for Women Scientists and Engineers

A large body of work in biophysics and physical chemistry suggests that the equilibrium, kinetics, and transport of proteins at surfaces may deviate substantially from these processes in bulk solution, i.e., that unique phenomena may occur and be important in the physical aspects of biological chemistry at interfaces. Dr. Thompson plans to address these questions by using substrate-supported planar model membranes and recently developed techniques in time-resolved, laser-based fluorescence microscopy. This proposal fulfills the FAW objectives which are 1) to recognize outstanding and promising women scientists and engineers in academic careers of research and teaching and 2) to facilitate the further development of their careers.